Geometric applications of dualities

This is a research in the field of algebraic geometry - a classical subject studying the solutions to systems of polynomial equations. The project addresses four problems providing novel interfaces between complex geometry and string theory and quantum physics. The first one outlines a new way to extract Hodge theoretic invariants directly from the sheaf theory of commutative or noncommutative spaces. The formal structure of these linear entities will be studied and through the physical notion of quantum mirror symmetry used to produce new invariants of symplectic manifolds. In the second project a new method is proposed for proving the K-equivalence conjecture in birational geometry. The third project concerns the problem of deformation quantization of geometric dualities and symmetries in the complex analytic context. The fourth project analyzes the supersymmetry constraints for D-branes with non-trivial fluxes wrapping algebraic cycles in Calabi-Yau threefolds. The large N quantization of the branes is probed in the context of algebraically completely integrable systems.

The understanding of these questions is essential for unifying various
linearization procedures in algebraic geometry, symplectic topology,
theoretical and mathematical physics. The project sets the stage for
understanding the basic structure of algebraic varieties in a way
suitable for pragmatic use in a broad spectrum of applications. The
project outlines concrete interdisciplinary applications to matrix
quantum mechanics, string dualities and topological black holes.
This project also aims to organize a concentrated effort on enhancing
the geometric arsenal of techniques used in high energy physics and
condensed matter theory. This will be achieved by training a group of
young researchers, and graduate and undergraduate students in
mathematics and physics, and by a curriculum development of courses on
Hodge theory, non-commutative geometry and mirror symmetry, on the
graduate and undergraduate level.